Inquiry-based Laboratories in Physiology

9351540 Nemotko The objective of this project is to establish inquiry-based laboratories in anatomy and physiology utilizing a technologically based instructional support system. The physiological measurement instrumentation requested, in conjunction with computer equipment and software already available at the college, will enable students to collect and analyze data and to investigate the effects of chosen variables on muscle, pulmonary and cardiovascular physiology. The curriculum to be instituted will require students to select variables, conduct literature searches, formulate hypotheses, determine appropriate experimental designs, collect and analyze data and report on results obtained. ***